Evergreen International Bacteriophage T4 Meeting, Olympia, WA, August 1-6, 1987

This proposal is to provide partial funding for the 1987 biannual International Bacteriophage T4 meeting at Evergreen State College. This meeting provides a much needed forum for discussion of the results of basic research dealing with the replication, regulation of gene expression, and morphogenesis of bacterial viruses. Previous meetings have generated a valuable book (The Bacteriophage T-4) and a T4 community newsletter. The meeting have been well attened bya mixture of graudate students, postdoctoral fellows, and established scientists. The 1987 meeting promises to be equally successful.